NSF Young Investigator Award

This research project addresses the design of autonomous agents that are capable of intelligent behavior in dynamic environments with multiple agents. The focus is on the development of effective techniques for managing computational resources, with particular attention being given to meta-level control strategies, i.e., procedures that allocate and monitor the agent's base-level reasoning resources. Such procedures trade optimality of performance for time-efficiency, a trade-off that is essential in dynamic or multiagent environments. Experimentation is being conducted, using a simulation system, to determine the relative advantages that result from the deployment of alternative reasoning strategies in various environments.